Graphs, Trees and Geometric Group Theory

DMS-0204185
Karen Vogtman

This project continues to develop a set of ideas which
began with an attempt to understand automorphism groups
of free groups by representing them as homotopy equivalences
of graphs. The space of all such homotopy equivalences,
called Outer space, is a contractible space on which the
group of outer automorphisms of a free group acts properly
discontinuously. Analyzing the quotient of Outer space by
this action has yielded a significant amount of algebraic
information about this group over the years. More recently,
work of Maxim Kontsevich has related the rational homology
of this quotient to the homology of a certain
infinite-dimensional Lie algebra, consisting of derivations
of the free Lie algebra. Kontsevich also defined variations
of this infinite-dimensional Lie algebra whose homologies
are related to the homology of mapping class groups and to
Kontsevich's graph homology, which is a homology
theory containing various 3-manifold and knot invariants.
The Principal Investigator will use this point of view to
obtain new information about invariants of these groups
of classical interest to topologists; conversely, topological
methods will be applied to obtain new information about
these Lie algebras and their homology. In particular, new
Lie bi-algebra structures on the chain complexes used to
compute graph homology, recently discovered by Jim Conant
the the Principal Investivator, will be investivated.
Finally, the local geometry of Outer space will be studied.
Certain neighborhoods in Outer space are non-positively
curved metric spaces, and can be identified with spaces
of finite labelled metric trees. Such trees are of interest
in many branches of science, including biology, where they
appear as evolutionary trees produced from DNA data. Another
aim of this project is to determine efficient algorithms for
finding geodesics in this space, and to continue from there
to develop a program of applying statistical methods to this
space of trees.

Graphs and trees appear in many contexts in the sciences and
in mathematics. In Geometric Group Theory a space of graphs
known as Outer space, originally defined by Marc Culler and
the Principal Investigator, has been used extensively to
study the group of outer automorphisms of a finitely
generated free group. In this project the Principal
Investigator will continue to study how the geometry of
this space is related to algebraic properties of the group
of automorphisms. A new perspective on this problem is
provided by work of M. Kontsevich; motivated by
considerations from physics and symplectic geometry,
Kontsevich defined various abstract infinite-dimensional
algebraic structures whose invariants are closely related
to invariants of Outer space. Finally, small regions of
Outer space can be identified with spaces of finite trees.
Such trees are used as a tool by evolutionary biologists,
and another focus of this project is understanding the
local geometry of these regions in a very concrete,
algorithmic way which can be applied to problems in
molecular phylogenetics.